AF: Small: New Challenges in Geometric Search and Retrieval

Geometric retrieval is the problem of preprocessing multi-dimensional
geometric data for rapid access. Efficient geometric search and
retrieval are of fundamental importance in engineering and science, and
have numerous applications in areas as diverse as knowledge discovery
and data mining, pattern recognition and classification, machine
learning, data compression, multimedia databases, document retrieval,
and statistics. Given the high complexity of exact solutions to these
problems, researchers have been led to consider these problems in the context
of approximation, where small errors in distance are tolerated.

Over recent years, there have been many advances in our understanding of
the computational complexity of approximation algorithms for proximity
searching. This has ranged from the development of a theory of the best
space-time tradeoffs achievable for these problems to practical software
systems. Nonetheless, there are still many important, challenging
problems that remain. Research under this award will both deepen and broaden
our understanding of the computational complexity of approximate
proximity searching. In particular, PI will study new data
structures for polytope membership queries, polytope-based approaches to
approximate nearest neighbor searching, simplification and unification
of proximity data structures, dynamic data structures for proximity
searching, and software implementations of these algorithms and data
structures.

In addition to the contributions of new algorithms and data structures,
software systems and libraries will be developed as part of this
research, which will be made freely available over the Web to help
scientists and engineers in other disciplines solve their own
application problems that involve nearest neighbor and range searching.
The geometric retrieval algorithms, developed as a part of this
research, will be incorporated into a graduate-level course in
computational geometry. Course materials will be made available over the
Web as a resource for researchers interested in learning about this
area.